BioArcade

Red Hills Studios proposes to design and develop BioArcade, a suite of online biology games for youth ages 9 to 13. Unique to the field of educational games is the specialized and innovative modding feature that Red Hills Studio will develop. Modding will allow learners to create their own customized versions of BioArcade games for dissemination to other learners. BioArcade games are intended to encourage extended game play and motivation for learning key biology concepts through exciting interactive game modules developed by a leading group of game developers and science content experts. The underlying educational and scientific framework for BioArcade will be developed collaboratively with Co-PI, Dr. Janis Cannon-Bowers at the University of Central Florida and Roger Bybee at the Biological Sciences Curriculum Study (BSCS), along with the projects Scientific and Design Advisory Boards.

The project will rigorously evaluate modding as a potential new approach in game design. The modding innovation will be studied in a three-condition randomized controlled trial to determine its effectiveness in promoting deep exploration of scientific concepts and increased knowledge gain. Results of the study will be disseminated to the informal learning community through peer-reviewed educational journals, papers, and presentations at science education and game conferences. Extensive formative and summative evaluations, conducted by Knight Williams Research Communications, will provide valuable insight and assessment of the game design approach for science content learning in informal venues. BioArcade will be widely disseminated daily to millions of young learners online through PBSKids: www.pbskids.org/